Continuing REU Site: An Undergraduate Research Participation Program in Computer Science

This project will bring six undergraduates students to the Hope College Campus for a ten week period in the summer of 1992. In this time, the students will be provided with a research experience, and given the encouragement to pursue a career in computer science research. Half the participants will be from Hope College, and half from other institutions. A strong emphasis will be placed on the recruitment of women and minorities. Areas for research include parallel algorithms, neural networks, data communication, concurrent processing, voice recognition, fractal growth and graphics algorithms.